Water and Constituent Fluxes Across the Eurasian Arctic: Evolving Land-Ocean Connections Over The Past 20,000 Years

This project will continue a U.S.-Russian collaboration to compile data on the pan-Arctic drainage system. Russian data for the major river systems will be made available, digitized, and used in a water balance model. The project will extend current estimates by updating the river discharge, climate, and constituent databases to the year 2000. The modeling effort will extend the time horizon to simulate river runoff, river routing, and discharge regimes at selected periods from 6000 to 20,000 years ago. The improved water and constitution balances will provide understanding of Eurasian hydrologic and material cycles, for understanding the coupling between the Eurasian land and shelf, and for understanding Arctic and global circulation. This project will provide the basis for understanding the role of the Arctic hydrologic on global freshwater balance. Changes in the balance are critically important because of the large volume (10% of the world's freshwater runoff goes to the Arctic Ocean) and its role on sea ice formation which is sensitive to global warming.